Two Variable Extension and Factorization Problems with Applications to Wavelets

Proposal Number: DMS-0200219
PI: Jeffrey Geronimo

ABSTRACT

Research will be conducted into the Fejer-Riesz factorization
of two variable positive trigonometric polynomials. The results
obtained recently with Hugo Woerdeman on this problem will be
used to investigate the properties of stable two variable
polynomials. A two variable polynomial is said to be stable
if it is non vanishing inside and on the bicircle. Results
obtained from these investigations will then be applied to the
construction of two variable wavelets, two variable filter
design, and image processing.

An important problem with many applications that was solved
early inthe twentieth century was the problem of factorizing
positive trigonometric polynomials. A trigonometric polynomial
of degree n in x is a polynomial that can be written as linear
combination of sines and cosines of integer multiples of the
frequency x. It was shown by Fejer and Riesz that such a
polynomial can be written as the magnitude squared of another
polynomial. This result has had many useful applications in
the area of filter design for electrical circuits, prediction
theory, and more recently in wavelets.